Travel To Attend The Tenth International Symposium on Chemical Reaction Engineering (ISCRE 10), at Basel, Switzerland, on August 29, 1988.

The PI is planning on presenting a paper at the Tenth International Symposium on Chemical Reaction Engineering (ISCRE 10) entitled "An Isothermal Fixed-Bed Reactor with Nonuniformly Active Catalysts: Experiments and Theory" which is the result of work done under a previous NSF grant. This grant will provide travel funds for the airfare to and from Basel, Switzerland.